Materials Research Science and Engineering Center

9632570 Herman The Materials Research Science and Engineering Center (MRSEC) at the University of New York at Stony Brook supports research in the area of thermal spray processing and associated materials. Thermal spray coatings are crucial to the economic, safe, and efficient operation of a wide variety of engineering components. The Center has a focus on key scientific issues which are likely to play a role in thermal spray processing. The research is carried out in two interdisciplinary research groups. One group integrates diagnostics and modeling of the plasma spray process in order to develop tools for generating process designs and intelligent control strategies. A second group concentrates on basic understanding of the relationship between processing, microstructure, and properties of the thermal spray product. Details of the microstructures will be linked through modeling to activities in the first group. Special emphasis is placed on measurement of mechanical properties and on application of a variety of sophisticated characterization tools. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research and emerging areas, and fosters research participation by undergraduates. The MRSEC has strong industrial links and an educational outreach program from the pre-college to the graduate level. The Center currently supports 13 senior investigators, 3 postdoctoral research associates, 1 technician, 8 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Herbert Herman. %%% The Materials Research Science and Engineering Center (MRSEC) at the University of New York at Stony Brook supports research in the area of thermal spray processing and associated materials. Thermal spray coatings are crucial to the economic, safe, and efficient operation of a wide variety of engineering components. The Center has a focus on key scientific issues which are likely to play a role in thermal spray processing. The research is carried out in two interdisciplinary research groups. One group integrates diagnostics and modeling of the plasma spray process in order to develop tools for generating process designs and intelligent control strategies. A second group concentrates on basic understanding of the relationship between processing, microstructure, and properties of the thermal spray product. Details of the microstructures will be linked through modeling to activities in the first group. Special emphasis is placed on measurement of mechanical properties and on application of a variety of sophisticated characterization tools. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research and emerging areas, and fosters research participation by undergraduates. The MRSEC has strong industrial links and an educational outreach program from the pre-college to the graduate level. The Center currently supports 13 senior investigators, 3 postdoctoral research associates, 1 technician, 8 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Herbert Herman. ***